Petrology of Late-Stage Komatiites from the Barberton Greenstone Belt

The komatiites of the lower formations of the Barberton greenstone belt have been extensively studied, but little is known of the widespread komatiites of the upper portions of the Barberton greenstone belt. This project will be a comprehensive study of these upper komatiites, including: 1) geochronology, stratigraphy, and correlations with other upper greenstone belt structural units; and, 2) petrogenesis, especially of the volumetrically important, though very unusual, high Al/Ti komatiites. The proposed work will be conducted in the ICM-MS lab at MIT, and in southern Africa while the PI is on sabbatical leave from LSU. Analytical procedures for REE, and PGE analyses by ICP-MS will then take place at the new ICP-MS facility at LSU.